Disaster Recovery Performance After Hurricane Hugo: Poor Report Card

The recovery efforts from the impact of Hurricane Hugo on South Carolina will be examined. The issues presented during the near-tern recovery will be identified; the influence of past experiences in hurricane recovery will be scrutinized; and the assumptions and expectations from federal, state, local public and private organizations made for the formulation of recovery plans will be compared with the actual recovery actions. The result of this work will benefit natural hazards researchers, administrators, planners, the insurance industry, and other professionals dealing with natural disasters mitigation.